Acquisition of a High Resolution Transmission Electron Microscope.

This proposal is for funds to purchase a transmission electron microscope for the Microelectronics and Engineering Research. It will be used mainly for research in materials science such as studies of epitaxial growth of Si-Ge films, deformation mechanisms of high temperature intermetallic compounds, and microstructural development in permanent magnet alloys.